CISE Research Instrumentation: Equipment for Research in Image Understanding & Image Compression for Dynamic Scenes

This award is for the purchase of a Datacube MaxVideo 20 Image Processing System and two Sun SPARCstations each with an image database server. This equipment will support research in image understanding and image compression for dynamic scences. Research in image understanding and image compression requires high computational power and large memory space. The University of Central Florida will purchase equipment to build a real-time vision system to support several research projects in image understanding and image compression for dynamic scenes.